NeTS-FIND: An Architecture for Network Control Management

Current Internet network controls are realized by an ad hoc
combination of protocols, automated configurations, and manual
configurations. This ad hoc environment makes it difficult to provide
concrete behavioral assurances. Moreover, the entire system might
exhibit harmful emergent behaviors that are difficult to anticipate,
test for, debug, or correct.

The architecture for the future Internet should thus eliminate the
current ad hoc practices and start from a clean slate. This project is
developing a new architecture in which each network control function
is realized as an application that runs on top of an operating
platform. The operating platform provides crucial abstractions,
interfaces, and services to allow applications to effect changes in
the underlying network nodes, to enable the composition and concurrent
executions of multiple applications, and to provide protection
mechanisms to guard against potentially harmful actions of
applications. Intellectual challenges such as scheduling,
synchronization, inter-application communication, resource
multiplexing, and operational invariant protection for the new breed
of network control applications are being investigated.

Broader Impacts: This project directly addresses a key challenge for
future networks, namely network manageability. Problems in network
manageability affect the health of the networks we depend on,
and they affect the manner in it is possible for innovation and
economic growth to occur with these networks. Our new approach to
manageability, the operating platform architecture, can potentially
stimulate a market for a variety of 3rd-party network control applications.
Finally, this project provides particularly exciting opportunities
for the training of undergraduate and graduate students because they
develop applications in a fundamental way, but addressing high-impact
current issues. We expect to diffuse the findings from this project
into cutting-edge courses on network management.